Long and Medium-Term Research: Development of SupercomputerCodes for Solving Quantum Optic Master Equations

Alsing Long & Medium-Term Research: Development of Supercomputer Codes for Solving Quantum Optic Master Equations This award is made under the Program for Long- & Medium-Term Research at Foreign Centers of Excellence, which enables U.S. scientists and engineers to conduct three to twelve months abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award, sponsored by Dr. Howard J. Carmichael of the University of Oregon at Eugene, will support a twelve-month postdoctoral research visit by Dr. Paul M. Alsing with Dr. Craig M. Savage at the Australia National University, Canberra. They will develop supercomputer codes for solving quantum optic master equations. The system under study is a single atom strongly coupled to a quantized mode of a high quality optic cavity driven by an external coherent electromagnetic field. Via a quantum mechanical master equation, the problem of calculating quantum statistical quantities of interest (steady state field distributions, spectra, etc.) is reduced to solving a large sparse system of coupled linear differential equations. Basic supercomputer codes developed by the researchers already exist and use a simple one-step Euler algorithm. They propose to investigate other, faster integrations schemes to yield a healthy trade off between speed of execution and memory requirements. They will modularize these to extend their applicability, creating a very general, fast, and efficient quantum optic master equation solver. The basic codes have already discovered a novel phase bimodality for the intercavity field of a single atom in a cavity driven on resonance. To this, the researchers will add detunings and possibly several modes and/or a few atoms. They will study quantum mechanical systems whose classical equations exhibit chaos. The proposed master equation solver should prove a very general, flexible, numerical tool to compliment analytic investigations into a wide range of phenomena in quantum optics. The award recommendation provides funds to cover international travel, dependent's allowance, and a flat administrative allowance of $250 for the U.S. home institution.